MRI: Career Advancement Award in Electronic Structure Theory

This Minority Research Initiation Career Advancement Award is to support theoretical and computational research to expand the capabilities of Howard University's program on electronic structure theory. Resources will be used to expand the present program by modifying existing computer codes to include studies of artificially structured materials in reduced dimensions such as quantum wells, semiconductor superlattices, quantum dots and quantum wires. %%%